Shell Structures for Emergency Bypass Bridges

There is a critical need to erect bypass brides quickly to repair or replace the on-line bridge structure. The concept could also be used to erect a new bridge quickly. In response to the need, this project will investigate the feasibility of using a standard form to produce precast shell-type bridges or bridge segments which can be manufactured, transported, and erected quickly. The investigation will study dimensions and methods of mass production for various size bridges for different span lengths. This first phase will be an analytical study to determine sizes and effect of various parameters to determine the suitability of shell-type structures for bridges of short and intermediate spans.